Collaborative Research: Mantle and Fluid Evolution Across the Izu Arc

In order to test three hypotheses regarding petrogenetic processes below the Izu arc, the PIs will analyze submarine rocks collected by dredging, ALVIN and ODP legs, and from a future IFREE/JAMSTEC cruise. Under this award, the PIs will study the petrography, mineral chemistry, major and trace elements (XRF, ICPMS), and Sr-Nd-Pb-Hf isotopes of 50-100 basalts, mostly from the extensional region, but also from the volcanic front and rear arc seamount chains. They will also measure 187 Os/ 188 Os ratios and Re-Os concentrations for a suitably mafic subset of these samples, and for the high-priority subset of sediments and basalts from ODP Site 1149 in the Pacific ocean crust outboard of the Izu arc.